Mathematical Sciences: 1988-89 Spring Topology Conference to be held April 7-9, 1988, Gainesville, Florida

The Department of Mathematics of the University of Florida will host the 1988 Spring Topology Conference. The Department of Mathematics of the University of Tennessee will host the 1989 Spring Topology Conference. These will be the 22nd and 23rd annual conferences, respectively, in a series of conferences held at various universities. Over the years, many important areas of topology have been well-represented at these conferences. Last year for the first time, dynamical systems was integrated into the conference. There was much interest and interaction among participants, and in fact, several people from the traditional group gave talks relating to dynamical systems. The conference will merge the two groups again in 1988. It will again run for three full days in order to accommodate additional talks. Most of the speakers will come from the traditional group. Some survey talks by well-known researchers will be given as well as talks on interesting new results. The focus in 1988 will be on two special areas: (1) group actions, including the Hilbert-Smith Conjecture (a p-adic group cannot act on a manifold), and (2) dynamical systems, including complex dynamics. There will be a survey talk on each of these topics. A third area with invited talks is the application of topology to chemistry, especially the application of knot theory to the behavior of DNA. In 1988, there will also be two or more Problem Sessions on various topics, including one on each of the above topics. Problem Session Leaders will be responsible for writing up the discussion and problems for publication in "Topology Proceedings".